SUPPORT OF NP2010: AN ASSESSMENT AND OUTLOOK FOR NUCLEAR PHYSICS

This project is part of a series of National Research Council studies that seek to develop the scientific goals for fields of physics and astronomy for the next decade and beyond. The focus of this project is nuclear physics research.

Over the past decade, new U.S. initiatives in nuclear physics have been successful not only in expanding the understanding of basic nuclear science, but also in translating that understanding into applications with enormous societal impact. Representative samplings of the areas that have been advanced in the last ten years are successes in probing the quark structure of the nucleus, in investigating the physics of quark-gluon plasma and in studying nuclei near the limits of stability. Applications now range from isotope production for medical use and material analysis techniques to energy production and the finding of solutions for nuclear forensics and defense-related problems.

The goal of this study is to develop a strategy that can serve as a framework for the field through 2020 and beyond. This strategy not only will build on recent successes in the field, but also will evaluate how to take advantage of potential international collaborations. There are a number of international efforts either underway or in development, and an important part of this project will be to have the U.S. nuclear physics research communities determine how best to advance the science in this field, whether it be through collaboration in these international projects or the development of additional facilities that will help address the many as-yet unresolved questions in this field.